Editorial and Conference Support for the Presidential Awards for Excellence in Science and Mathematics Teaching Program

9614030 Binaut To initiate and process the Presidential Awardees Contractual Agreement.